RUI : Shell Structure and Isospin Symmetry in Exotic Nuclei

This is a project engaging Ursinus College undergraduates in
experimental nuclear structure research. The project is part of an
ongoing collaboration with colleagues at the National Superconducting
Cyclotron Laboratory (NSCL) and Florida State University (FSU)
involving experimental work at the NSCL. The proposed work will
contribute to the understanding of proton and neutron contributions to
low-lying collective states in exotic nuclei outside the valley of
stability. Proton and neutron contributions to nuclear excitations can
be disentangled by comparing transition strengths measured using pairs
of complementary experimental probes. The advent of radioactive beam
technology has enabled such investigations away from stability through
inverse-kinematics proton scattering and Coulomb excitation
measurements. We plan to investigate the persistence of shell
structure away from stability in neutron-rich exotic nuclei via
inverse-kinematics proton scattering and test isospin symmetry in T=1
isospin multiplets near mass A=50 via Coulomb excitation.

A central goal of the project is to maintain an active research
program in nuclear structure on the Ursinus College campus. Ursinus
College is a national liberal arts college of about 1475 students with
a long history of strength in the sciences. This project will provide
students opportunities to apply their knowledge of physics outside the
classroom, gain practical skills in data acquisition and analysis,
observe and participate in the operation of a nuclear accelerator
facility, and present their work to colleagues. Participants will
travel to the NSCL to perform experiments and analyze the data at
Ursinus. They will present their results to the Ursinus community as
part of the Ursinus College Summer Fellows Program and to the nuclear
physics community at American Physical Society/Division of Nuclear
Physics meetings.